Summer Research Experiences for Undergraduate Geology Majors

This project will provide a summer's research experience for eight undergraduate geology majors. Of the participants, three to four of the students and two of the faculty involved, will be from schools other than Furman. These outside participants will be drawn from the geology programs of schools that belong to two consortia of which Furman is a member. Faculty involved will work with one or two students to direct them in a 9-week research effort. As the summer progresses, the student will be encouraged to become increasingly more independent. The goals of each effort will be to produce valid verifiable results that will contribute to the body of knowledge in geology and that can be presented to the scientific community in the form of a presented paper or journal article.